Techniques for Dynamic Load Balancing in Scientific Software

9360149 Ballance In this research we propose to develop and demonstrate a model for scalable high performance computing software. Our approach combines two existing computing paradigms. The first is a model for dynamic load balancing that has been tested on Multiple- Instruction Multiple-Data (MIMD) machines. The second is a reusable software design called a "framework." The framework is an object-based software architecture that assists the programmer in modifying existing and in building new scientific codes. It also improves programmer productivity by assisting program component and design reuse.